Time Division Multiplexing of Optical Interconnection Networks

The goal of this research is to study, design and evaluate control mechanisms for time-multiplexing optical interconnection networks in multiprocessor applications. Such mechanisms decouple the relatively slow network control from the high optical data transmission bandwidth. The research will assess the advantages, capabilities and limitations of time-division multiplexing. Specifically, models will be developed to specify the communication requirements of applications, to express and measure the communication locality present in communication loads, and to estimate the communication cost in multiplexed interconnection networks. Different control protocols will be simulated and tested on traces collected from actual parallel applications, and on synthetic traces generated with the help of the communication locality model. Centralized, distributed and pipelined control strategies will be implemented and compared. This project is motivated by several observations. First, without multiplexing, the control overhead of establishing end-to-end connections in a network may be prohibitive. Second, applications exhibit communication locality which amplifies the benefits of multiplexing. Third, the high bandwidth of optical paths allows for multiplexing with minimal effect on the transmission rate on individual connections. Finally, the nature of massively parallel programs allows compilers to determine, with current technology, the multiplexing sequences that satisfy most of the communication requirements.